Third International Symposium on the History of Particle Physics to be Held June 24-27, 1992 at the Stanford Linear Accelerator Center

An International Symposium on the History of Particle Physics is being held at the Stanford Linear Accelerator Center from June 24- 27, 1992. This is the third in a series of such gathering that began at the Fermi National Accelerator Laboratory in 1980. A primary goal of these meetings is to identify principal themes and critical problems, thereby laying the basis for future historical studies of an important area of modern physics. Themes to be explored in this symposium include the growth of large international scientific collaborations, the transition from fixed- target to colliding beam modes of experimentation, the unification of the weak and the electromagnetic forces, and the development of the quark model of elementary particles. While concentrating on the "Rise of the Standard Model" in particle physics, the symposium is not ignoring particle physics outside of this mainstream--eg. papers are being given on the discovery of CP-violation. By bringing together a group of prominent scientists together with leading historians, sociologists and philosophers of science, the organizers aim to promote interdisciplinary collaboration in writing the history of recent science and to develop further the methodology of using personal recollections of major contributors as a tool for historical research. The proceedings of the symposium are being carefully edited, extensively referenced and supplemented with an introduction that discusses the historical context in which the development of the standard model occurred.